Smoothed multiple endpoint procedures.

Classical multiple endpoint testing procedures such as Scheffe,
Tukey, Bonferroni etc. are oftentimes too conservative. This is
particularly true if the number of endpoints is large as in many recent
applications. In an effort to declare significance of endpoints more
rapidly than classical multiple comparison methods permit, procedures with
stepwise structure were introduced. Most recent procedures have a
stepwise structure, that is they are either single-step, step-up or
step-down. To evaluate and compare procedures the proposers have studied
properties of these stepwise procedures. One very surprising result of
considerable practical value is that the popular step-up procedure is
inadmissible, even for a vector risk function consisting of average size
as one component and average type II error as the other component. The
step-up and step-down procedures also have a disturbing practical
property; namely a small negative change in one variable accompanied with
reasonably sizeable positive changes in other variables can lead from many
rejections to many acceptances. The current proposal is to find "smooth"
procedures that retain the desirable properties of stepwise procedures
while improving on the shortcomings. By representing the step-up
procedure as a linear combination of products of indicator functions a
smooth competitor to step-up is found and will be evaluated. Another idea
proposed is to find a parametric empirical Bayes procedure that will
control the average size component of the vector risk used to evaluate
procedures. A critical aspect of the proposal is to study the amount of
improvement the new methods have over step-up.

The investigators study the problem of how to decide which among
many possible individual entities are significant. For example, there are
thousands of a person's genes examined in a microarray. Which genes are
different or expressed differently when one examines cancer patients
compared to non-cancer patients. To be able to decide such could provide
a valuable diagnostic tool for early detection of cancer. This example,
is one of many, that illustrates the problem of multiple testing
procedures. Other areas of application include detection of covert
communications, detection of bioweapons, comparing several treatments with
a control, examination of mutual fund data in an effort to single out
successful funds, examining testing methodologies in education and
psychology settings. New and efficient statistical methodologies are
introduced and analyzed in this research undertaking.